Acquisition of a Single Crystal X-Ray Diffractometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Wake Forest University in the purchase of a single-crystal x-ray diffraction. This instrument will be used to provide structural data critically needed for the advancement of knowledge in five significant chemical research areas: chiral catalysts, stereochemistry and absolute configuration of new organic compounds and metal chelates, new solid state materials with extended structures, fluorinated-imide ion conductors, and new classes of organometallic compounds useful in organic synthesis. The X-ray diffractometer is used to make accurate and precise measurements of the full three- dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of that molecule relative to the neighboring molecules.